SHF: Medium: Automated Graphical User Interface Testing with Learning

Smartphones and tablets with rich graphical user interfaces (GUIs) are
becoming increasingly popular. Hundreds of thousands of specialized
applications, called apps, are already available for these mobile
platforms, and the number of newly released apps continues to
increase. The complexity of these apps lies often in the user
interface, with data processing either minor, or delegated to a
backend component. A similar situation exists in applications using
the software-as-a-service architecture, where the client-side
component consists mostly of user interface code. Testing such
applications predominantly involves GUI testing. Existing automatic
techniques for testing these interfaces either require a priori models
of the interface and are thus hard to use, or operate blindly by
sending random user events to the application and are typically unable
to test the application in satisfactory depth.

This project investigates automatic GUI testing techniques that
systematically explore the state space of an application without
requiring an a priori defined model. One insight behind this project
is that the automatic construction of a model of the user interface
and the testing of the interface are tasks that can cooperate in a
mutually beneficial way. Furthermore, a guiding principle throughout
this research is to design algorithms that operate with abstractions
and heuristics that are simple enough to be understood by humans who
do not necessarily understand the internals of the tested app. Such
algorithms are easier to comprehend and to incorporate into a
wholistic test process that includes automated techniques, such as the
ones developed in this project, and manual testing and guidance. The
techniques developed in this project benefit directly programmers for
these apps, and indirectly the numerous users of mobile and web
applications.